Applications of 13C tracer studies and stable isotope geochemistry to determine rhizosphere alteration of PAH bioavailability in contaminated geomedia.

0337453 Nichols The focus of the proposed research is to determine how the rhizosphere environments impact PAH aging and bioavailability. The novel aspect of this proposal is that the researchers will evaluate activity in the rhizosphere that could both increase or decrease PAH bioavailability. For example, bioavailability could be increased as the result of exudates destabilizing SOM and enhancing the desorption of PAH or decreased by providing new hydrophobic sorption surfaces and stimulating humification reactions that act to sequester PAHs in stable organic matter. Isotopic tracer techniques will be used to evaluate the impact of vegetation on PAH bioavailability. The proposal described a detailed experimental approach for accomplishing the proposed objectives that is scientifically sound.